Research in Engineering for Undergraduate Women and Minorities

Eight undergraduate students participate in engineering research during the summer and prior to their senior year. The project concentrates on providing opportunities for undergraduate women and minorities. The engineering school has an existing program which this project would parallel. The research is done in interdisciplinary areas of engineering.